Collaborative Research: CT-M: Unification Laboratory for Cryptographic Protocol Analysis

The ability to reason about different equational theories is very
important to the analysis of cryptographic protocols. An understanding of
how equational properties of a function used by a protocol can be
exploited by an intruder can be invaluable in finding flaws that might
otherwise be missed. Numerous examples exist in the literature and even
in fielded protocols. One very powerful tool for cryptographic protocol
analysis with equational theories is equational unification. Equational
Unification was the basis of the NRL Protocol Analyzer (Maude-NPA). Its
use of these theories allowed it to both reproduce existing flaws and find
new ones at a level of precision way beyond that available to other tools
at its time. This suggests that equational unification if properly
extended, can give support in a similar fashion to analysis of
cryptographic protocols that use functions that obey more expressive
equational theories. The aim of this project is to provide a
laboratory for equational unification that will develop the algorithms
and techniques that can be used to support the use of equational
unification in cryptographic protocol analysis. This effort will
consist of two parts: the development of unification algorithms for
theories of interest to cryptographic protocol analysis, and the development
of new techniques for employing unification in cryptographic protocol
analysis. The project will help in the design and implementation of next
generation tools for protocol analysis. Tools developed in the project
will be made available to other researchers working on formal protocol
analysis methods as well as to protocol designers for experimentation. The
educational component of the project will involve undergraduate and
graduate students at both institutions.